Salivary Steriod Correlates of Successful Conception

The primary objective of this research is to study normal variation in human ovarian function. This will be undertaken through the measurement of steroid hormones in healthy women living in the Cambridge Massachusetts area over a time course. The primary, longitudinal data will consist of progesterone and estradiol levels, determined from salivary samples, for each female over an extended time course. A variety of steroid profiles are expected to emerge and hazards-model analysis will be used to relate these to various life events. This research will make it possible to assess the impact of normal variability in ovarian function on female fecundity and increase our understanding of human reproductive ecology.